Collaborative Research: A Virtual Reality Laboratory and Curriculum for Undergraduates

Computer Science (31)

The "Collaborative Research: A Virtual Reality Laboratory and Curriculum for Undergraduates" project is evaluating a variety of low- and moderate-cost equipment suitable for immersive virtual reality.

Intellectual Merit: This project is evaluating the plausibility of purchasing and constructing low cost equipment for teaching immersive virtual reality. It is also developing educational materials to support using this equipment in a variety of computer science courses.

Broader Impact: The project is exploring developing low cost equipment with tailored educational materials which can be inexpensively adopted. The equipment is enabling students to experience immersive virtual reality and can be adopted for Human Computer Interaction (HCI) and game programming courses. The PIs are disseminating their results through presentations at both regional and national conferences.